Science & Math: Adapting Research for Transformation

9552866 Snyder The goal of the Saint Paul Public Schools is to develop a model for Local Systemic change in the district. With the assitance of a planning grant a comprehensive vision for mathematics and science instruction will be discussed, alliances will be formed with partners and a strategic plan for K-12 instruction will be developed. This will result in a plan for implementing effective instruction by means of systemic teacher enhancement. Funds amounting to $43,500 are requested from NSF with cost share estimated at $9,000.